AF: Small: Collaborative Research: Mathematical Theory and Fast Algorithms for Rayleigh Quotient-type Optimizations

Many modern data analysis techniques and applications in machine
learning try to learn what input data has the largest effects on the
outputs. Rayleigh Quotients (RQ), or, more generally, RQ-type
objective functions, are the basis of a mathematical technique that
captures this information. This project conducts in-depth theoretical
and algorithmic studies of three RQ-type optimizations: robust RQ
optimizations that can handle data uncertainty, constrained RQ-type
optimizations that can incorporate prior information from image
segmentation or data clustering, and trace ratio optimizations that
can perform multi-view spectral clustering. This project improves
understanding of this practically important and user-oriented
mathematical theory, creating computational methods that are embodied
in open-source software. It not only advances mathematical theory
and optimization algorithms in data science, but trains computer
science and computational mathematics graduate students in
interdisciplinary knowledge and tools necessary to undertake the
project successfully. The PIs also involve undergraduate students
in all aspects of this research project.

The PIs expect to produce a unified view of RQ-type optimizations,
reformulating them into linear and nonlinear eigenvalue problems for
which new variational principles can characterize the optimal
solutions. These new principles should expose the numerical linear
algebra characteristics of the underlying problems, supporting the
development of fast algorithms that exploit the mathematical
properties and sparse data structure.